SGER Proposal: Climate Calibration of Soils for Application to Paleoclimates

SGER Proposal: Climate Calibration of Soils for Application to Paleoclimates

Judith T. Parrish-Jones and Jon D. Pelletier
EAR-0086513

Paleosols are increasingly used as paleoclimate indicators. Preliminary work by the PI and colleagues has suggested that the climate calibration of modern soils may not be as robust as previously thought. If paleosols need to be reexamined more closely as paleoclimatic indicators, then that must take place as soon as possible. This is because the impact on ongoing deep-time paleoclimatic studies may be profound and the wider community should have this information just as soon as possible. This project will use large-scale databases to address this problem.